Manufacturing Engineering; Computer-Integrated Manufacturing

9452821 Sanders The University of New Haven seeks to provide an innovative enrichment program in engineering to introduce 42 high potential and high ability minority, female and other students entering grades 11 and 12 to educational and career opportunities in manufacturing. The program is structured to provide "hands-on" experiences in the use of computerized integration and controlled manufacturing and robotics, as well as to teach basic research methods and ethics. The program is in two four-week sessions with follow-up activities during the academic year.